Upgrade of the Steward Observatory Cryogenic Spectrometer

9315872 Rieke Development of the cryogenic spectrometer was funded by the National Science Foundation in 1989. At that time the instrument included provision for upgraded capabilities which are now to be implemented. These capabilities include increased resolution from approximately 700, or 3,700 depending upon the grating, to approximately 19,000. An existing tip/tilt mirror system will also be adapted to the instrument to improve the effective sensitivity by stabilizing star images on the instrument slit. The upgraded resolution is to be accomplished with a new immersed-silicon echelle grating. The novel design of the instrument provides the new capabilities at relatively low cost in comparison with facility instruments at other observatories. The spectrometer will be used with the telescopes of the Steward Observatory as well as with the upgraded 6.5 meter Multiple Mirror Telescope. ***